International Symposium on Tunnelling for Water Resources and Power Projects, New Delhi, India, January 19-27, 1988 Group Travel Award in Indian and U.S. Currencies

Objectives and Relevancy: This project supports participation by 15 U.S. scientists and engineers in an international symposium on tunneling for water resources and power projects, to be held in New Delhi January 19-22, 1988. The symposium will cover several topics, including engineering classification of rock mass for tunnelling, studies of hydraulic tunnels in hard rock, weathered and fractured rock and swelling rocks, geometric and hydraulic design of tunnels, evacuation, support and reinforcement, tunnel lining for stability, monitoring and back analysis of tunnels, and case histories. The U.S.-India program supports participation by U.S. scientists and engineers in major international meetings in areas of interest to the two countries. The project meets this criterion. Merit: The topics of the conference are important to the U.S. where new concepts of pumping and power generation result in changing stress distribution in tunnels and lining, creating a need for improved tunneling methods and designs of tunnels. The topics are also important to India where major water and hydroelectric projects have been completed or are under construction including the single largest tunnel ever built. The selection of the U.S. participants will be done by the P.I., and by representatives of the U.S. National Committee on Rock Mechanics. The symposium is likely to increase cooperation between U.S. and Indian scientists and engineers in this field. Funding: None other than this action